On the Factorization of Lacunary Polynomials

Filaseta
0207302
The investigator and his collaborator Douglas Meade develop
and implement efficient algorithms for irreducibility testing and
factorization of polynomials with small Euclidean norm. In
addition, they classify through similar algorithms all cases
where reducibility occurs with Euclidean norm bounded by some
prescribed amount. Issues relating to the complexity and
parallel implementation of such algorithms are considered.
Both factoring and, more generally, computational
mathematics have played a vital role in cryptography. The
importance of algorithms in such applications continues to
increase as technology advances. This project deals with
factoring polynomials of high degree from both a theoretical and
computational point of view. The work has application in
cryptography and in complexity theory, which deals with the
question of how much work is needed to solve certain kinds of
problems.